Kan: A Platform for Reliable Distributed Objects

Proposal CCR-9972571
Title: Kan: A Platform for Reliable Distributed Objects
PI: Ambuj K Singh

The goal of the project is to design and implement
a distributed object-oriented system for supporting large and
complex parallel and distributed applications.
The system supports a simple, yet powerful, programming model with the
following language features: asynchronous
method calls, concurrent threads, guards, nested transactions,
and objects that can be migrated and replicated transparently.
The system achieves efficiency and scalability through dynamic
runtime optimizations such as an adaptive thread pool,
thread inlining, monitoring of object access patterns,
and dynamic clustering and granularity.
The system is resilient to node failures; this is attained
through low-overhead algorithms for logging and recovery.
Investigating weaker notions of object consistency
that allow reduced communication between processors
is another goal of the project.
Shared whiteboards, electronic
commerce, and parallel scientific programs are some of the
targeted applications.
The project will lead to a better understanding of scalable,
fault-tolerant distributed systems.